Construction of MAXIMUM, a Multiple Application X-Ray Imaging Undulator Microscope

Propose the construction of Multiple Application X-ray Imaging Undulator Microscope (MAXIMUM), a unique experimental system suitable for the implementation of photoemission microscopy with undulator synchrotron radiation and of a variety of other ad- vanced x-ray microscopy techniques. The system uses synchrotron radiation emitted by a 60-pole undulator installed on the storage ring at the Wisconsin Synchrotron Radiation Cener. Its unique characteristics will be exploited for a variety of studies in biology, biomedicine, physics, chemistry and materials science. This project will transform several synchrotron-radiation experimental techniques into novel microscopies. The principal mode of operation of MAXIMUM will be as a photoemission micro- scope. This will make it possible to obtain detailed "chemical Maps" of the specimen, with information on its chemical components and on their chemical status. The latter capability enhances the possible applications of photoemission microscopy with respect to other microscopies. Such a capability is very interesting, for example, in the study of semiconductor inter- faces and of cancer cells, and in the characterization of integrated circuits.